U.S.-Argentina Program: Planning for Golondrinas de las Americas in Argentina

0548593
Winkler

Dr. David W. Winkler, Cornell University, will be supported for a planning visit to meet with his counterpart, Dr. Juan Carlos Reboreda at the University of Buenos Aires in Argentina to work on advancing the goals of the Golondrinas de las Americas research network, which studies environmental and phylogenetic influences on life history variation in Tachycineta swallows. This planning visit will permit Dr. Winkler and two students to meet with colleagues in Buenos Aires, Cordoba, Ushuaia and in Santiago, Chile, to evaluate new locations for nest-box placement and to set up new sites. The visit will enhance the PI's work on latitudinal variation in bird life histories and expose two students from the United States to international collaboration.